Sequence Elements Active in Alphavirus RNA Replication

To identify host-cell or viral ıproteins! that interact with conserved nucleotide sequence elements in the promotion of alphaviral RNA replication. Four conserved nucleotide sequence elements of 19 to 51 nucleotides may serve as promoters in the replication of viral RNA. Mutational analyses of three of these elements in Sinbis virus have shown that they are crucial for the replication of the virus and have suggested that they are sites of interaction with host-cell and viral proteins. Three approaches to identify host or viral proteins that interact with these elements will be used. RNA binding will assay proteins from infected or uninfected cells that interact with these sequences elements. Short probes of viral RNA that contain a conserved sequence element will be synthesized in vitro and used to study the interaction of the sequences element with proteins. These interactions will be assayed by mobility shift analysis of the RNA probe. UV crosslinking of bound proteins to labeled probe can then be used to identify specific proteins that interact with these probes. Such proteins can be isolated and sequence obtained in order to identify the nature of the protein. Many of the mutations introduced into the various sequence elements render the virus temperature sensitive (ts) or otherwise highly attenuated for growth. Second site revertants of two such mutants have been isolated and it is anticipated that second site revertants of other mutants can also be isolated. The supperessor mutations in such second site revertants are presumably changes in viral proteins that interact with the sequence elements, and such suppressor mutations will be mapped. In this way it is hoped that specific viral proteins that interact with a particular sequence element can be identified. Chimeric viruses between Ross River and Sindbis viruses will be constructed. In such chimeras, the proteins encoded by one virus must interact with sequence elements of the second virus. The properties of such chimeric viruses will allow us to probe the functions of the various domains and to determine the nature of protein-protein and protein-RNA interactions. To determine the boundaries of and requirements of these conserved nucleotide sequence elements for alphavirus RNA replication and the effects of changes in these elements upon RNA replication. We will follow up our mutational analyses of Sinbis virus conserved sequence elements in two ways will be followed up by: Construction and testing; mutations in Ross River virus conserved sequence elements in order to compare the results of the same mutation in two different alphaviruses. A comparative approach to the study of alphavirus genomes is useful and informative and Sindbis and Ross River viruses differ in a number of interesting ways that can be exploited in the study of virus RNA replication. Viral RNA replication by these mutants will be studied in order to further define the role of these sequence elements in RNA replication. Utilization of truncated RNAs with mutations introduced into these sequences elements in an attempt to dissect the role of these elements in promoting the synthesis of plus strand versus minus strand RNA will be undertaken. //